CEDAR: Transmitter and Receiver Upgrade for the Urbana Medium Frequency (MF) Radar Under the CEDAR Program

Funds are requested to replace the transmitter for the Urbana medium frequency (MF) radar, an important contributor to the study of middle atmosphere dynamics. A new unit will be computer controlled, automatically reset after a power failure, and more easily maintained by students. In addition, funds are also requested for the purpose of replacing the single existing receiver with four new units. This work is important because the Urbana radar will contribute to the improved understanding of longitudinal differences in mean winds and tides.